Molecular and Genetic Analysis of Olfaction in Drosphila

Understanding the development and functional organization of the nervous system has emerged as one of the fundamental issues in modern biomedical science. The olfactory system which subserves the sense of smell is as an excellent model for studying these issues and others which are unique to this sensory system. How the olfactory system functions; how is assembled during development; how it is maintained throughout the life of the organism; and how it contributes to survival through its effect on an organism's behavior are major objectives. In particular, the three central problems of olfaction are the molecular and cellular mechanisms of how we are able to detect and discriminate such a vast number of different odorants, how this information is encoded so that it is able to be interpreted by the brain, and how genes determine the assembly and maintenance of the olfactory system. These studies involve isolating and characterizing genes that are important in the functioning of the olfactory system using the experimentally manipulable animal model, the fruit fly, Drosophila melanogaster. One of the genes, called pentagon, when disrupted leads to a specific defect in the animal's ability to respond to the odorant benzaldehyde (oil of almond), while preserving the response to a number of other odorants. The specificity of this defect suggests that the pentagon gene is responsible for making a molecule that may be essential in the initial reception of processing of odorants. By employing a multidisciplinary approach which includes behavioral studies, in conjunction with molecular and genetic studies, the pentagon molecule, is isolated and its role in the functioning of the olfactory system is determined. This should provide important insights into how the sense of smell works and help to explain one of the major paradoxes of the sense of smell which is: Why do some odorants the appear to be virtually identical, chemically, smell completely different, while odorants with little in common chemically may smell the same.